Transitioning Funded Research Outcomes to Practice: Barriers, Opportunities, and Challenges

The United States has taken a leadership role in initiating and funding research in Cyber security over several decades. Although the research has yielded significant advances in both understanding the underlying issues associated with cyber security and describing increasingly effective measures for securing information systems, only a small fraction of this insight has been transferred to fielded systems, government or commercial. Deficiency in the area of transferring technology to practice is a pressing issue in the U.S. today.

This Cyber Security Transition to Practice workshop seeks to identify means by which NSF can facilitate technology transfer at multiple points in the process: for the researcher, institution, funding agency, and investor.